UNIDATA Equipment Grant: Establishing a UNIX-Based Interactive Meteorology Lab

This award is to established a Unix-based interactive meteorology lab utilizing the Unidata-distributed software packages: McIDAS, GEMPAK and WXP. In doing this, we are committed to becoming an active member of the Unidata community.